NSF Minority Postdoctoral Research Fellowship for FY-1999

This action fund an NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of cell biology and addresses the mechanisms of chromosome motion in the fission yeast, Schizosaccharamyces pombe. Accurate and timely segregation of chromosomes during cell division is necessary for cell proliferation and is fundamental to the cell cycle. The specific objectives of this research are to determine the mitotic roles of two microtubule motor proteins, KLp1p and KLp2p, i.e., kinesin-like proteins.